CSUMS: A Pilot Program to Train Cryptography Students in Computation

Mueller
DMS-0639325

This CSUMS project prepares undergraduates in mathematics to
pursue graduate work in cryptography, a field of mathematics
where computation is of extreme importance. Indeed, cryptography
is a multidisciplinary field. Designing secure communication
protocols is a complex issue, requiring considerable training and
research in a wide range of topics, including abstract number
theory and computation. Consequently, major centers in
cryptography worldwide feature strong links between mathematics
and computer science. Research in this area requires skills from
both fields, and this presents a major challenge for young
researchers coming from either background alone. This program is
designed to help students in mathematics gain the necessary
skills so that they can succeed in their subsequent graduate and
postgraduate career. Participating students are required to take
a comprehensive program of study which (a) prepares them for
graduate work in mathematics, (b) gives them the necessary
foundation in number theory and cryptography, and (c) enables
them to use computers in their research, including writing
distributed programs that operate on large numbers -- a special
requirement of the central research theme of this project.
Second, participating students take part in a year-long research
project, such as the following: implementation and analysis of
new cryptosystems, distributed attacks on existing or developing
cryptosystems, discovery through computation of numbers with
special properties (e.g., large pseudosquares), or computational
experiments to verify research conjectures in cryptography
theory. All research projects revolve around computation.
Moreover, the projects stem directly from the research efforts of
the principal investigator and her colleague.

Each student participating in this project prepares for
computationally-intensive mathematical research. As a group, the
students also participate directly in such research, exploring
basic questions about cryptography and related areas. After
participating in the program, the students are well prepared to
pursue graduate school in mathematics or cryptography. They also
are able to perform research in others of the many branches of
mathematics where computation plays a significant role. In
short, the program helps strengthen the kind of education that
prepares students for professional as well as academic careers in
cryptography and the burgeoning field of information security and
privacy. The project is supported by the MPS Division of
Mathematical Sciences, the MPS Office of Multidisciplinary
Activities, the EHR Division of Undergraduate Education, and
NSF's EPSCoR program.